Development of a Flexible Microcomputer Laboratory for Teaching Digital Electronics and Microcomputers

This project enhances computer and electrical engineering courses at this institution. Modular microcomputer systems and associated development hardware provide a high degree of configuration flexibility for use in both electrical engineering and computer engineering. The support equipment for this project includes personal computers that are utilized for digital logic design capability using programmable logic devices, for digital simulation, for software development and in-circuit-emulation. Using this lab, students experience the complete (hardware and software) design cycle from conception through design refinement and debugging, to the realization of a functional stand-alone embedded computer system. This award is being matched by an equal sum from the grantee.